Manifold Topology and Applications to Geometry

ABSTRACT
DMS-0602298 F.Thomas Farrell The goal of this project is two pronged. One
direction is the basic problem of classifying homotopically equivalent
manifolds up to homeomorphism. Surgery theory was developed for this
purpose. But in order to make this theory effective for manifolds with a
given fundamental group, it is necessary to calculate the algebraic L- and
K-groups of its its integral group ring which occur in the surgery exact
sequence. Direct algebraic methods have generally proven
unsuccessful for this. The case of finite fundamental groups being a major
exception. The techniques to be used instead will come from differential
geometry, controlled topology, dynamical systems and Lie group theory. The
results obtained so far using these methods have been quite encouraging. The
second direction of the project is to find applications of these manifold
classification results to geometry. One area that looks promising is to
understand the topology of the space of all negatively curved Riemannian
metrics on a smooth manifold and its quotient moduli space. There is the
related following question. If one smooth structure on a closed manifold
supports a negatively curved Riemannian metric, then does every other smooth
structure support such a metric? And a possible application to affine
geometry is to the problem of whether homeomorphic complete closed affine
flat manifolds are necessarily diffeomorphic.
Manifolds are geometric objects which locally resemble the space of
Euclidean geometry but are usually quite different globally. For example the
surface of the sphere locally resembles the plane; but is only finite in
extent. Being finite in extent is what is meant by a closed manifold. A
smooth manifold is one without corners or edges. For example the surface of
the sphere is smooth but the surface of a cube, although a manifold, is not
smooth. However these two manifolds are homeomorphic; i.e. it is easy to
construct a continuously varying bijective correspondence between the points
of these two surfaces. When the distance between points on a manifold is also
considered, we are now talking about Riemannian manifolds and distance
preserving correspondences are called isometries. For example the egg and the
ball represent two different positively curved Riemannian metrics on the
surface of the sphere. And these two metrics even represent different points
in the moduli space of such metrics since the ball is uniformly round while
the egg is not. However if only the notion of straight line is being
considered (i.e. geodesic ) we are talking about affine manifolds and affine
equivalences. Distance preserving correspondences take straight lines to
straight lines but not necessarily vice versa.